Nuclear Structure and Nuclear Astrophysics

Michigan State University proposes a three-year grant supporting the research
of a faculty group in nuclear theory, Professors B. A. Brown and V. Zelevinsky,
together with M. Horoi (Central Michigan University). The research proposed
encompasses a broad range of topics in nuclear structure and nuclear astrophysics
important for the ongoing program at the National Superconducting Cyclotron
Laboratory. The main components are structural properties of nuclei, including
those far from stability, and their manifestation in nuclear reactions and astrophysical
phenomena. The rich experience of the group and the support from MSU
and NSCL provides the .rm basis for a diverse and topical research program.
The proposed research is in the mainstream of modern nuclear physics that is
directed to answering principal questions what are the limits of stability of nuclei,
how did the chemical evolution of the Universe proceed, what are the
ways of self-organization in interacting many-body systems - how does order coexist
with chaos and complexity. Concrete directions of the proposed research
logically follow from the previous experience of the group. Suggested main topics
are (i) development of new analytical and computational tools for the description
of nuclear structure and nuclear reactions, especially for the nuclei far from
stability; (ii) detailed consideration of speci.c nuclear phenomena and nuclear
processes that shed light on the new features encountered with the advances into
virgin territory of unstable nuclei; (iii) calculations and modeling of structural
and dynamical aspects of nuclear processes of astrophysical interest; (iv) studies
of many-body quantum chaos and its coexistence with collective and regular
features in nuclear structure and reactions.
The suggested program is expected to have appreciable impact on the development
in the .eld of nuclear theory and nuclear astrophysics. It will also in.uence
the direction of the experimental e.orts. In a broader context, successful progress
in the program is important for our understanding of the basic constituents of
matter and nucleosynthesis in the Universe. The studies of many-body properties,
chaos and collectivity in nuclear structure, have a strong interdisciplinary
aspect since the nucleus is an exemplary case of a self-sustaining .nite Fermisystem
with strong interactions. Historically, many ideas .rst formulated in the
context of nuclear theory fertilized other branches of physics. The proposed research
is expected to help studies in physics of Bose- and Fermi-condensates,
complex molecules, solid state microdevices and quantum computing. The proposal
has a considerable educational component being part of the highly ranked
nuclear physics program at NSCL/MSU.